Chemistry Career Planning Workshop for Underrepresented Minority Students, Lafayette, Indiana, June 12-14, 1992

This award will provide partial support for the Chemistry Career Planning Workshop for Underrepresented Minority Students which will be held at Purdue University, June 12-14, 1992. The objective of the workshop is to bring minority students from throughout the U.S. together with about 25 very successful minority mentors from industry, academia and government, in order to acquaint the students with the opportunities created by obtaining a Ph.D degree in Chemistry. The workshop will also afford the students to meet with graduate students in the Chemistry Department at Purdue and to see state-of-the-art research instrumentation in use.